Conference: SRCOS Summer Research Conference in Statistics and Biostatistics

The 58th Summer Research Conference (SRC) and Statistics Undergraduate Research Experience (SURE) will be held in Waco, Texas on June 11-14, 2023. The Southern Regional Council on Statistics (SRCOS) is a consortium of statistics and biostatistics programs from 45 universities in 16 states in the Southern region. The SRC is an annual conference sponsored by the SRCOS. The purpose of the SRC is to encourage the interchange and mutual understanding of current research ideas in statistics and biostatistics, and to provide motivation and direction to further research progress. The SRC will give new researchers an opportunity to participate in the meeting and to interact closely with leaders in the field in a manner not possible at larger meetings. In addition to the graduate student participation, the 58th SRC will also include the fourth annual Statistical Undergraduate Research Experience (SURE), a conference within a conference aimed to encourage the participation of undergraduate students from under-represented groups to pursue graduate education and career opportunities in STEM fields. SURE will include events specifically for undergraduate students and undergraduate mentors, such as a panel about career opportunities in statistics, a real data analytics workshop, and a speed-mentoring session with current statistics and biostatistics graduate students.

The SRC is particularly valuable for graduate students, isolated statisticians, and faculty from smaller regional schools in the southern region at drivable distances without the cost of travel to distant venues. Speakers will present formal research talks with adequate time allowed for clarification, amplification, and further informal discussions in small groups. Graduate students will attend and present their research in posters to be reviewed by more experienced researchers. Participation in SURE will encourage under-represented students to enter STEM fields, including statistics or biostatistics, and provide training to support this endeavor. The 58th SRC will strengthen the research of the statistics and biostatistics community as a whole and help bridge the gap for under-represented groups to pursue statistics or biostatistics, particularly in the sixteen states of the Southern Region. The SRCOS website can be found here: https://www.srcos.org; the 58th SRC website can be found here: https://www.srcos.org/conference; the SURE website can be found here: https://www.srcos.org/sure-2023.